A National Focal Point for Education in Nondestructive Testing/Nondestructive Evaluation

The Center for Nondestructive Evaluation and six community colleges form a dissemination focal point to enhance the education of technical workers in the fields of nondestructive testing/nondestructive evaluation (NDT/NDE). The project builds upon previous projects that developed simulations in ultrasonic detection. Education for NDT/NDE is fragmented, taking place in various technological studies. The focal point provides a website that informs high school and community college faculty and students about the knowledge and skills required for jobs in NDT/NDE. This website brings standards, skills, curricula, materials and job information together materials in one place. The materials can be used in related technology programs such as manufacturing, welding, airframe, power plant and chemical processing. The project also provides opportunities for faculty development and student awareness.